Acquisition of Micro-Compounding Molding Systems for Polymers and Bio-based Materials Research & Education

The funds provided by the NSF Instrumentation for Materials Research program support Michigan State university with the acquisition of a unique micro-compounding molding system to support research in emerging new bio-based materials and polymers, and related educational programs. The equipment will be used in support of research which includes: (i) investigation of fundamental phenomena in newly developed bio-based materials and polymers, (ii) optimization of processing parameters at the micro-scale - - to establish structure, property, and performance relations and (iii) expansion of the integration of research and education in the area of polymer blending, polymer compounding and nanocomposites.

The funds provided by the NSF Instrumentation for Materials Research program support the Michigan State University with the acquisition of a unique micro-compounding molding system. The system will support research in new bio-based materials and polymers, and related educational programs. The equipment will be used in support of research to establish structure, property, and performance relations and education in the area of polymer blending, polymer compounding and nanocomposites.